Engineering Research Equipment: Laser Doppler Velocimetry System for Combustion Research

An upgraded Laser Doppler Velocimeter (LDV) will be used in studies of deposition processes in optical fiber manufacturing, vortex dynamics in rectangular combustors, flame structure for combustion chemistry studies, and atomization processes in liquid rocket motors. The upgraded instrument will be capable of measuring velocity from zero to +- 200 m/sec under a variety of conditions. For the deposition study, particle velocities will be measured under the influence of electric field enhanced deposition conditions for comparison with modeling calculations. In the asymmetric combustor study, velocity distributions will be measured in a rectangular dump combustor with acoustic forcing. In the combustion chemistry studies, velocities normal to the test burner will be measured to aid in determining kinetic behavior. In the atomization study, liquid drop size and velocity distributions under oscillationing flow conditions will be measured. Acquisition of the upgraded equipment will lead to a more quantitative assessment of a variety of combustion process, and should positively impact the optical fiber, jet engine, and rocket motor industries.